Protection and Translation in Multimodel Multiprocessors: The MIP FUGU Workstation

This project is extending the Alewife multiprocessor to explore two aspects of future scalable multiprocessors. One aspect is protection. Protection is required on accesses to hardware resources, with as little software overhead as possible. For example, when a message sender and receiver are part of the same application, they should be able to directly access network hardware. The other aspect is address translation, so that each application can have its own address space. All processors executing an application must have the same address space, however. To ensure this, memory mapping hardware is placed at each node of the multiprocessor, and must be kept coherent. The FUGU system provides three modes of interprocessor communication. Shared memory is provided by hardware synthesized messages among nodes, which maintain cache coherence. Short messages can be sent directly by performing loads and stores to I/O registers that are in each node's address space. Longer messages are managed by a DMA engine that is separate from the processor. Translation and protection for shared memory and for short messages are provided by hardware enhancements that maintain coherence in the translation lookaside buffers and ensure that messages are received only by the processes that they are addressed to. For long messages, only minimal support for address translation is provided by the hardware since the need for such translation is likely to be rare. Any needed translation will be provided by software.